A Study of Long-Term Architectural Limits to Computing: Galileo

Galileo is an investigation into the implications of long range technology advances across the computer field. While projections of narrow scope are difficult and risky because of the rapid progress over a very broad range of technology, it is possible to extrapolate current trends and make intelligent guesses about future computer building blocks. Extrapolating current rates of progress to as little as a decade hence suggesting that incredibly powerful computer systems might not be only possible, but even affordable. Current technology trends will undoubtedly be affected by new discoveries and by limitations long before such performance levels are reached. It is the goal of this research to identify those development directions that are likely to come into conflict or otherwise be retarded, and to investigate the implications of these effects. Future machines will undoubtedly much lower costs of all operations, but some operations will become much cheaper than others. A major goal is to identify the relative improvements on different kinds of operations, and to understand how these changes will affect architecture, the programming environment, and the algorithms used. The processor has long been the heart of a computer system, and though much has been written about other limitations, the CPU still plays a central role in today's architectures. Increasingly the processor is becoming less effective, limited not by its peak processing power, but by the ability of the system to provide work to keep it busy. While processing power is rapidly becoming cheaper, the effective use of memory and communication is becoming the critical challenge in achieving higher performance. Memory costs have declined rapidly and steadily for more than twenty years, and will continue to decline in cost per bit. Access time has not improved dramatically, however, and high-bandwidth, low latency-memory will always be relatively expensive. Limitations in memory access tile and bandwidth are already posing difficult design challenges, and this will only be aggravated by technology trends. This research is investigating how a system can get higher performance form its memory system by applying cheap processing power wherever it can be used effectively. In some sense, the system becomes a collection of memory modules with processing power distributed in ways to maximize the effective use of memory by minimizing communications between memory modules. Memory access time and memory latency are intimately related. Both are critical for a high-performance system, and either can be optimized at the expense of the other. Today memory latency seems to be the more urgent problem, and much current research is devoted to reducing or tolerating memory latency. Assuming that some of these techniques are successful, the more fundamental problem of memory bandwidth emerges. While it may be possible to build systems of arbitrarily high bandwidth, it appears that one of the most important emerging challenges is to make the most effective use of whatever bandwidth is available between modules. By today's standards, future systems will have enormous processing power, huge amounts of memory, and incredible communications bandwidth. Computer systems will be limited by memory modules of insufficient capacity and communication paths of limited bandwidth, with processor distributed generously wherever needed to optimize the effectiveness of memory and communication bandwidth. Galileo is investigating how the architecture of such systems should differ from systems of today. Galileo is investigating how the architecture of such systems should differ from systems of today, and how such systems should be programmed.